High Statistics Photoproduction of States Containing Charm Quarks Using the FNAL Wide Band Photon Beam

***
9724011
Davenport
In this RUI proposal Prof. Davenport requests support for participation in the FOCUS Collaboration. This is a fixed target experiment at Fermilab which has made major contributions to the understanding of charmed quarks. Prof. Davenport has been an important contributor to this experiment, and has been successful in involving undergraduates in his research program.
***